Acquisition of a Mass Spectrometry System for the Analysis of Noble Gases

The rare gases (helium, neon, argon, krypton, and xenon) are important geochemical tracers. Their elemental abundances are useful in understanding the physical and chemical processes responsible for the formation of rocks, meteorites, seawater, groundwater, and the atmosphere. Their radiogenic isotopes (e.g., helium-4, argon-40, xenon-129) provide important time constraints on geological events. The high-precision analysis required for geological interpretations based on extremely small abundances of these rare gases require state-of-the-art mass spectrometric techniques. This award will provide 50% of the funds required to purchase a modern mass spectrometer system for noble gases. The instrument will be installed and maintained in the Division of Geological and Planetary Sciences at the California Institute of Technology. The Institute is committed to providing the remaining funds necessary for the acquisition. Specific research projects that will make use of the facility include work on mantle chemical evolution, crustal fluids, surface-exposure dating, and solar system evolution.